Young Scholars Summer Science Institute

The University of Pittsburgh at Greensburg will offer four week, Summer Science Institute for thirty-six Young Scholars entering the tenth or eleventh grade in the fall of 1989. It will consist of seminars on careers in the sciences, field trips, meal time meetings with scientists, and follow-up activities. Mini-courses to be conducted are: (1) Computer Organization, (2) Gene Manipulation: Friend or Foe, (3) Linear Optimization in Mathematical Modeling, and (4) Philosophy and Ethics in Science: Case Studies. A project and report are associated with each mini-course. Sessions on scientific aids include: scientific methods and data interpretation, software packages, statistics, scientific writing, oral presentations word processors, and CAD/CAM demonstrations. Career seminars in the sciences are entitled: "The Need for Scientists, Engineers, and Teachers in the Twenty-first Century," "Engineering Careers," "Careers in Computer Science, Chemistry, Life Sciences, Mathematics, Physics, and Statistics." Field trips to private industrial facilities will give participants first-hand knowledge of career opportunities. Students will be encouraged to bring classmates and teachers to one of three annual Science Day (s) at UPG.